MAST Center Participation in EU Membrane Network

This international collaborative project provides support for US students and researchers and the European network will provide similar support for their students and researchers. The Industry/University Cooperative Research Center for Membrane Applied Science and Technology (MAST) will provide any additional support needed by the students for their projects.

The participation of the MAST Center will involve several components.

1) The MAST Center will perform two research projects that will be linked to the EU network
2) MAST Center students will perform some of their research at EU network facilities
3) The MAST Center will provide access to European researchers to use equipment and facilities
4) European PhD students can perform some of their research at MAST
5) US students and researchers can access the resources of the European network
6) MAST researchers will participate in the annual technical meetings for the network
7) MAST researchers can develop interactions that can lead to collaborative projects.